Evaluation of Satellite Magnetic Field Data: Currents and Waves

The proposed research program involves the analysis of magnetic field data acquired by the Swedish Viking and FREJA satellites and by the DoD HILAT, Polar BEAR, DMSP-F7, and TRIAD satellites. We intend to use these data in correlation with magnetic field observations from the NASA AMPTE/CCE and MAGSAT satellites in studies of the earth's magnetospheric and ionospheric current systems, both large and small scale, as well as magnetic wave phenomena. We propose to contrast the global current systems during active storm times vs. magnetically quiet times. A remote sensing, two-dimensional, horizontal current analysis has been performed on the MAGSAT data and matched to equatorial CCE results. These results are preliminary and we propose to complete, improve and apply this analysis technique to other cases involving dynamic circuits. We propose to determine the full three-dimensional ionospheric-magnetospheric current system during northward interplanetary magnetic field conditions as well. The most significant result and, also, remaining question is the confinement of the northward Bz (NBZ) currents to above 80 degrees in the case studied and the connection (or lack of connection) of the polar currents to the auroral zone current system for other cases. We intend to study the fine scale Birkeland currents involved in auroral acceleration processes, especially in the context of the storm and substorm circuit. We propose to continue our analysis of shorter time scale disturbances involved in the transition to wave phenomena. Some of the wave field subjects to be studied include: global MHD resonant and/or driven pulsations; local and remote particle-field cyclotron interactions; multi-satellite MFE data analysis to study global perturbations caused by solar wind pressure variations; statistical analysis of ULF waves from ground and spacecraft data; ULF wave propagation, including incoherent pulsation activity; and GOES and CCE spacecraft conjunction studies of ULF events. We intend to disseminate data and information by way of scientific journal publication, presentations, and collaborative efforts with individual scientists and agency program as we have done in the past. We propose to incorporate the upcoming FREJA mission data into this analysis effort as we have done with previous magnetic field data sets. The expanded FREJA data coverage will coordinate well with other programs, especially GEM and the internation STEP programs, as well as provide a maore complete MFE data base. The high resolution realtime data will advance our fine-scale as well as large-scale current studies and the dedicated wave channels will improve our ability to evaluate wave disturbance fields.